Mathematical Sciences: Travel Support for ICIAM 95; Hamburg, Germany; July 3-7, 1995

9421744 Kolata The Society for Industrial and Applied Mathematics (SIAM) will administer a travel grant program for U.S. mathematicians to attend the third International Congress on Industrial and Applied Mathematics (ICIAM 95). ICIAM 95 has proved to be an effective way to foster the interaction of U.S.> mathematicians and industry on a world wide basis. It is especially important for young researchers and graduate students who are near completion of their thesis to establish these connections. These grants will help young faculty and students make new connections in the world-wide community of researchers and practitioners that they normally would not be able to make. They will also help U.S. mathematicians keep pace with the advances in applications of mathematics to technology and science. Women and minorities will be especially encouraged to apply for grants.